Category III: Planning for a National Scale Data Platform for Personal Data

This project aims to develop a plan for a national scale operational data infrastructure for personal data, i.e., human and related data containing sensitive information. This project will engage the key stakeholders to develop a coherent strategy for the design, deployment, and operation of an innovative data services platform. The envisioned platform will be a unique resource for US researchers, educators and practitioners and will enable unprecedented access to high-quality personal data along with the analytical tools and computing capabilities to launch advanced data-oriented scientific workflows. Enabling access to such data will be transformative for researchers across a broad spectrum of scientific disciplines, driving significant advances in medicine, social sciences, and artificial intelligence. The platform will be a unique addition to the NSF funded cyberinfrastructure ecosystem and will be designed to be interoperable with other relevant data-focused investments and be available through national programs such as the National Artificial Intelligence Research Resource (NAIRR) and the Advanced Cyberinfrastructure Coordination Ecosystem: Services & Support (ACCESS).

While enabling broad access to personal data has obvious and potentially transformative benefits for the research community, a data platform for such data needs to consider the substantial ethical responsibilities and significant privacy risks associated with underlying data. This project focuses on an urgently needed cyberinfrastructure solution that maximizes data utility for public benefit while rigorously protecting individual privacy and maintaining public trust. This project will gather the technical requirements for the envisioned data platform to support a broad spectrum of research disciplines; identify the common infrastructure, security and privacy requirements for the platform; define path for integration with other computing and data infrastructure platforms in the NSF cyberinfrastructure ecosystem; develop the economic model to sustain the platform as a national resource; and finally, use the community input to develop a concrete design plan for the target platform.